Digital Systems Design Workstations

This project permits undergraduate students in this institution's engineering program to study digital design in a state-of-the-art environment. The laboratory that supports this project consists of four digital design workstations. Using these workstations, students are exposed to a broad range of simulation capabilities, including standard component modeling, modeling using a high-level language and physical modeling employing actual very large scale integrated circuits. Using such computer-assisted tools, students obtain practical exposure to complex digital design and analysis techniques. This award is being matched by an equal sum from the grantee.